Movement Analysis

This is the first year of a three year continuing award. The research explores a theory of visual analysis of movement for use in computer vision. This theory deals with use of motion information for object recognition and addresses segmentation of motion trajectories into groups of individual objects, such that all trajectories in a given group are consistent with a single set of 3D motion parameters; detection of cyclic motion and its use in the trajectory matching; study of relative motions for articulated objects, and its use in modeling and detection of fundamental movements; discovery of the invariant relations between 2D and 3D motion and their use in recognition; recognition of motion using temporal and spatial information, including the matching of motion trajectories of unequal length, using time warping.